SBIR Phase I: Accoustically Enhanced Airlift Bioreactor

0214761
McGrath

This Small Business Innovative Research Project proposes to combine a novel low-frequency acoustic energy technology with an airlift bioreactor. This is expected to provide a dramatic increase in bioreactor productivity by greatly increasing mass transport. The proposed technology will meet contemporary industry needs for a high productivity, low-shear bioreactor that can be used to economically produce a broad range of traditional and newly emerging biochemicals and bioproducts.

The commercial applications of this project include the culturing of pharmaceuticals and other biochemicals from a broad range of organisms including plant cells, mammalian cells, fungi, bacteria and yeast.